The UNH Meteor Radar System: Global Wind Measurements

Meteors are the visual manifestation of the penetration into the atmosphere of tiny fragments of interplanetary material, mostly of the size of a grain of sand or smaller with occasionally a larger one, that mostly burn up on entry, and produce a trail of ionized and optically emitting gas. The meteor trails are strong reflectors of high frequency radio waves, and the doppler shift of such waves gives the bulk velocity of the air over the height range from about 75 to 110 km altitude, and reveals tides, planetary waves, and seasonal and solar cycle variations. Thus the operation of meteor wind radars has provided a wealth of information on the dynamics of the mesosphere and lower thermosphere. This award is for continuation of the operation of such a meteor radar at the University of New Hampshire. The results will be incorporated with the results of campaigns of observations of the region by other radars and optical equipment, for the purpose of validating and calibrating models of middle atmosphere dynamics.